Numerical Treatment of Random Equations and Applications

Our research aims at a comprehensive study of analytical and numerical procedures for obtaining algorithms for solving a system of random algebraic equations, random differential equations and random integro-differential equations. These methods will be applied to specific models in science and engineering.